Economic Development in East Asia: Research Review Meetings

This award supports participation of eleven American scientists in research review conferences with counterparts from Korea, Taiwan, Singapore, Hong Kong, and Japan. The conferences will serve as fora for presentation of research findings on Asian business groups and economic development. The US research team is currently largely supported by grant SES 8606582 to the University of California, Davis.